A Distributed and Parallel Laboratory Using Linda

9452580 Elenbogen The project will construct a parallel and distributed computer laboratory, running the Linda parallel language on a SUN workstation network. The Linda programming language construct support various models parallelism and are supported by a variety of base languages. In particular Joyce and C will be supported. The laboratory would be devoted to a course in parallel and distributed algorithm development. This course is based on the ACM-IEEE course AL9 as part of its 1991 computing curricula. During class time, students would individually view demonstrations of parallel algorithms using a windowed environment to simulate several different architectures. Students would be able to individually view the algorithms at their own pace. Outside of class, students would write their own parallel and distributed algorithms, using Linda. Projects and demonstrations would make use of Linda's graphical debugging tool to view simultaneously the entire state of all processes as well as the data movement. Labs would be developed and made available which could be used at other institutions to teach their own parallel and distributed programming courses.